Doctoral Dissertation Research: Economic Restructuring, Political Ideologies, and Urban Crime

This project compares political structures and economic conditions in five high crime cities. Time series analyses will be used to determine factors associated with crime rates; in particular, analyses will focus on effects of economic restructuring in the years since 1945, and on shifting political trends, in affecting crime rates. Outcomes of the work include a more detailed study of the links between economic conditions (e.g., growth of specific jobs linked to particular types of crimes), and a better basis for developing policies to reduce crime rates.